Acquisition of an Event Reconstruction Facility for Nuclear Physics Research and Research Training at Hampton University

9414028 Beard The data-handling equipment supplied here will form the "Event Reconstruction Facility" at Hampton University. This facility will allow the reconstruction and analysis of data taken in the course of the study of nuclear structure and properties at the CEBAF laboratory. This will allow a more active research program at Hampton, and expand its present research significantly. ***